Development of a Social Science Computer Laboratory to Improve Undergraduate Science Instruction

9350962 Rudmann This project has established a social and behavioral sciences computer laboratory that introduces undergraduate students to computer-based social science research. To fully understand and appreciate the scientific dimensions of the social sciences, students are actively involved in conducting research, and are encouraged to become scientifically literate, self-directed, computer literate learners. Students also study social science issues with real data, using state of the art hardware and software. With this foundation, majors are expected to be much better prepared for upper division work, while non-majors will have an enhanced understanding and appreciation for the scientific basis of social science knowledge. ***